Connections to NSFNET

Tuskegee University request support from NSF for connection of their campus network to SURAnet. SURAnet is the midlevel network located in the southeastern United States. It will provide operations management and information services and it will give Tuskegee University a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The University needs greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the school to explore innovative educational resources.